ABR: Experimental Studies of Thermo-Chemical Convection in the Mantles of Terrestrial Planets

Heat and mass transfer across thermal and chemical boundary layers
within the mantle play a dominant role in the evolution of the
terrestrial planets. Although the interior of planets is not
accessible for direct observation, there are still seismological,
mineral physics, geodetic, and geochemical data that provide
constraints on mantle dynamics. Relating these observations to
geodynamic processes is critical for advancing our understanding of
the Earth's evolution.

This project will use laboratory experiments to characterize the
spatial and temporal evolution of compositional heterogeneity in the
mantle. The focus will be on fine-scale structures produced by
entrainment and stirring. An experimental approach will be used
because it is well suited for thermo-chemical convection. The overall
goals of the experiments are to 1) elucidate the coupling of heat
transfer and flow in a compositionally heterogeneous mantle, 2)
characterize entrainment processes and quantify entrainment rates, 3)
characterize the spatial and temporal evolution of compositional
heterogeneity, 4) understand the initiation and extinction of
thermo-chemical plumes. A second project will focus the interaction
between thermo-chemical convection and flow associated with plate
motions.The results of these studies will provide a basis for
interpreting and drawing conclusions from indirect observations, in
particular seismology and geochemistry.

This project will provide a training opportunity for a graduate
student, and an introduction to research for undergraduates. Outreach
beyond the group involved directly in the research will be through
classes at UC Berkeley, scientific conferences and refereed
publications. This project should lead to new interdisciplinary
collaborations between the engineering and geodynamics communities.